Assembly of Cytoskeletal Proteins into the Cleavage Furrow

9319041 Sanger Cytokinesis is a fundamental cellular process whose corrrect execution is essential for the normal development of muticellular organisms. It requires the transitory assembly of an actin/myosin contractile system, the cleavage furrow, that shares some of the properties of myofibrils in muscle cells and of stress fibers in non-muscle cells. Each of these assemblages is formed by the recruitment of actin, myosin and associated proteins to sites on the cell membrane where they become organized into contractile units that form attachments to the membrane. In each system, contraction requires ATP, and in muscle, at least, contraction is mediated by factors such as calcium ions. Each of the three contractile systems is dynamic and capable of reversible assembly and disassembly in response to a variety of signals, but the cleavage furrow is unique in the close coupling of its contractility and disassembly. The long term goals of the proposed research are to understand the factors responsible for the site-specific assembly and functioning of the cleavage furrow. The specific aims of this proposal are: 1, to test the hypothesis that the actin filaments in the cleavage furrow are attached to the membrane by a mechanism similar to that used by the cell for its interphase actin-myosin structures; 2, to examine the role of myosin phosphorylation in recruitment of myosin to the forrow and test the hypotehsis that actin and myosin can be recruited independently of one another; 3, to examine the sites of incorporation of actin in cleaving cells; and 4, to determine if fluctuations in calcium levels are evident during the assembly and contraction of the cleavage ring in dividing tissue culture cells and cardiomyocytes. A number of microscopic imaging methods will be used with living cells that have been microinjected with various probes to analyze the distribution of the major component molecules of the cleavage ring. All of the proposed experiments are designed to define some of the parameters responsible for the proper functioning of one of the most basic processes in cells: cytokinesis. %%% This project focuses on the mechanisms by which a single cell literally divides itself into two. In animal cells, we already know that this process involves the assembly of a ring of cytoskeletal filaments at the equator of the cell (or, if not equatorial, then at a position which defines the plane of cell division). These filaments are attached to the cell membrane. A mechanical contraction of that ring then occurs, which results in a constriction of the cell membrane at that plane. As the contraction of the ring continues, the constriction becomes greater and greater until the cell pinches itself off into two daughter cells. This project aims to learn in detail the mechanism by which the contractile filaments are attached to the membrane, the mechanism by which the protein building blocks of the ring are recruited to the site of the ring, and the biochemical mechanism whereby the cell regulates this process. This work is significant for many reasons. First, cell division is one of the most fundamental processes of life, and a better understanding of the mechanism would permit the development of in vitro and in vivo methods for manipulating the process for various biotechnological ends, both biomedical and non-medical. Second, the process is an excellent example of highly regulated, specific biomacromolecular polymer assembly/disassembly and chemomechanical energy transduction. A better understanding of this process would permit its exploitation by engineers and materials scientists, either directly as a biomolecular "smart" material or indirectly through biomimetic nanofabrication engineering. ***